Neutrino Astrophysics: Nucleosynthesis and Stellar Evolu- tion

Research focusses on 3 major topics. 1. Element nucleosynthesis by nuclear inelastic neutrino reactions in the mantle of a collapsing star. 2. Geochemical methods for measuring the flux of astrophysical neutrinos, specifically the mean galactic neutrino luminosity arising from stellar collapses. 3. The response and significance of the proposed 127 I solar neutrino experiment.